Implementing Active Learning Strategies into the Undergraduate Chemistry Laboratory Curriculum

Chemistry (12) Cooperative learning, guided inquiry, and problem-based learning strategies are introduced into the upper-level chemistry lab courses starting the analytical chemistry lab course. Experiments using low-cost PC-driven UV-visible spectrometers, a spectrofluorometer, and a capillatry electrophoresis instrument are adapted from standard literature and implemented using a guided-inquiry and project-oriented instructional format. Program effectiveness is assessed through a process using external evaluators as well as through student group self-assessment and exit questionnaire forms.